I/UCRC: Water and Environmental Technology Center

In Phase II operation, the Water and Environmental Technology (WET) I/UCRC intends to minimize any adverse effects of emerging contaminants (EC) on human health and/or the environment. The research challenges in this area include the need for more scientific information about levels, fate, transport, ecological and health impacts of ECs in the environment, the need for improved detection and monitoring capabilities, and for new cost-effective treatment technologies and optimization of existing operations at both water and wastewater treatment plants. Center engineers and environmental scientists utilizing microbial, chemical, and mathematic approaches will work collaboratively in coordination with center industry representatives to perform this research. WET's industrial, need-focused research program aims to enhance scientific understanding and help address potentially significant health and environmental problems.

BROADER IMPACT
The challenges addressed and potential benefits derived from the work of the Water and Environmental Technology (WET) I/UCRC impact several industries including: the Pharmaceutical and Personal Care Products Industries; the Oil and Natural Gas Industry; Pesticide and other Chemicals Industry; entities that treat wastewater and drinking water; and companies that create and service technologies for the removal of contaminants from water. Students and faculty will experience state of the art research projects of value to both industry and the community. Many member companies have overseas installations, and students will be exposed to regulatory, technological, social and cultural aspects of different countries, enhancing their global experiences. In addition, every effort will be made to engage and involve minority students, as well as students and teachers from local K-12 schools, in part through existing programs at the center's institutions. The Center will further enhance the ongoing efforts at the three institutions of integrating research into classroom teaching.